Dissertation Research: Collective Action and Popular Culture in Urban Mexico

This project involves the dissertation research of an anthropology student from New York University studying political leadership in a Mexico City lower class neighborhood. The project will focus on the change of leadership style from the old-fashioned `cacique` or strong-man style who provides generalized support to followers, to a more contemporary narrowly-focused issues-oriented leader of collective action. Using in-depth interviews of leaders and actors in collective popular movements , participant-observation of social movements, oral histories of local movements, and a survey of two neighborhoods the student will test the hypothesis that the loss of political control by the official PRI party is associated with a changeover in local political leadership style from strong-man to popular leader. This research is important because is will advance our understanding of how local issues are resolved in the capital city of our close neighboring country. Mexico is undergoing rapid political change, and this project will shed light on how that change is being lived out on the streets of working class neighborhoods. The information will be of interest to social scientists as well as policy makers who need to understand why the Mexican government institutes specific policies.